Molecular and Genetic Analysis of Potassium Transport

All cells accumulate and maintain high internal concentrations of potassium, usually against low external concentrations. The plasma membrane proteins that mediate this transport are, therefore, of fundamental interest particularly since the molecular mechanisms they employ remain largely unknown. There are yeast mutants that are defective for potassium transport, and he proposed project is to clone and sequence the gene encoding he low-affinity transporter proteins. In addition, heterologous gene fusions will be constructed and used to generate domain-specific antisera that will be employed to determine the secondary structure of the transporter. The antisera will also be used to inhibit potassium uptake and thus identify specific transporter domains directly involved in transport. Once functional domains are identified, monoclonal antibodies that recognize epitopes within these domains will be isolated and used to identify the specific amino acid sequences involved. Site directed mutagenesis will then be performed to obtain mutants deficient in transport. DNA sequence analysis of intragenic revertants of these mutants will permit sophisticated model building regarding molecular mechanisms for ion transport. Yeast has emerged as a model organism for the genetic and molecular dissection of fundamental cell biological processes. The approach that has been so useful for the analysis of cell cycle genes, protein trafficking sequences, and transcriptional regulation, will now be extended to elucidate the genetic and molecular bases of ion transport.